Data Research and Development Center

In the terms of this cooperative agreement, the National Opinion Research Center (NORC) will establish a Technical Center that will enhance the IERI program at the level of individual projects and at the meta level of theory building around the scaling up of effective educational interventions. The Center will be organized around three functions: (1) technical assistance, training, and ongoing needs analysis in service of IERI grantees, (2) community building, and (3) research and theory building related to core IERI priorities. All Center activities will contribute to a larger purpose that is consistent with the mission of IERI: To bring demonstrably effective interventions to scale in order to enhance student learning, and to more fully understand the nature of the scaling-up process. The activities of the Technical Center will be carried out in close and ongoing consultation with the cognizant NSF program officer and with the larger IERI Working Group. All strategic decisions of the Center will be joint decisions between the Technical Center, NSF, and the larger program leadership of IERI.